Joint Symposium on Refined Modelling of Flows and Turbulence

This award will support the proposed Joint Symposium on Refined Modeling of Flows and Turbulence, to be held in Iowa City, September 16-18, 1985. The symposium is intended to bring together international specialists on numerical modeling of flows in complex geometrics, and international researchers and modelers in flow turbulence.